New Isotopic Approaches to Hydrothermal Ore Deposits

This research will emphasize integration of isotopic, chemical and fluid inclusion studies, the relatively new techniques and approaches to include: (1) Sm-Nd and U-Pb dating of minerals such as fluorite, cassiterite and garnet, (2) high resolution U-Pb and 40Ar-39Ar geochronological studies of the relationship between the cooling history of pluton, and the age and temperature of associated hydrothermal activity, (3) Rb-Sr and 40Ar-39 dating studies of fluid inclusions, and (4) multi-isotopic (Nd,Sr,Pb,O, H,N,Ar,S,C) and rare earth element studies of the sources of components in individual minerals and their fluid inclusions. Two areas of classical hydrothermal mineralization in the United Kingdom. The Ns-W-As-Cu mineralization of the Cornubian metallogenic province. The second is the MVT-related fluorite- barite-base metal deposits of the North Pennine Orefield.